Photoelectron Angular Distributions and Alignment as Probes of Photoionization of Open-Shell Atoms (Physics)

A fundamental aspect of atomic physics--the interaction of light (photons) with individual atoms--will be studied. This interaction removes an electron (photoionization). The details of the energy and angular distribution of the emitted electrons yield important information about the nature of the interaction.